The Geochemical Characteristics of the Hawaiian Plume: Constraints From Studies of Lavas Forming the Koolau and Kahoolawe Shields

Frey
EAR-0105557

Terrestrial volcanoes are associated with three different tectonic
settings. Two are associated with plate boundaries, that is, regions of
plate divergence and convergence, and the third is intraplate volcanism.
Magmas erupted in these different environments differ significantly in
geochemical characteristics. In this proposed research the goal is to
understand the source and processes which determine the geochemical
characteristics of Hawaiian lavas. This endmember is of great interest
because it may in part represent the consequences of subducting oceanic
crust deep into the mantle at subduction zones.

The approach will be to determine abundances of major and trace elements
and isotopic ratios of O, Sr, Nd, Pb, Hf and Os in lavas of varying
relative age from these two shields. For Koolau the samples to be studied
are from a recently drilled core, that penetrates the shield to a greater
depth and older age than previously studied surficially exposed samples.
For Kahoolawe, which has not been intensively studied, the samples will be
from several stratigraphic sections across the shield. The principal
objective is to understand the source components contributing to these
magmas; hence emphasis will be on evaluating correlations between abundance
ratios of highly incompatible elements, e.g., Ba/Th, Ce/Pb and La/Nb, and
isotopic ratios. These geochemical characteristics will be determined
using analytical facilities such as inductively couples plasma mass
spectrometry and thermal ionization mass spectrometry.

Because of their oceanic plate setting, relatively simple mineralogy and a
wealth complementary studies, Hawaiian volcanoes present the best
opportunity for understanding the role of recycled crustal components in

oceanic island volcanism. In particular, this research will aid in
constraining the processes and source components which create a geochemical
endmember of Hawaiian shield lavas.